Mathematical Sciences: Method of Intertwining Operators for Integrable Models of Quantum Mechanics

This project is research in mathematical physics. The main thrust is quantization, which involves the replacement of scalar quantities of physical interest by linear operators on an appropriate space. Professor Gutkin will continue his work on integrable models of quantum field theory, especially on models related to the quantum nonlinear Schroedinger equation. The emphasis of the work will be on findiing connections between the method of intertwining operators and the quantum inverse scattering method.